Operator Theory, Free Probability, and Related Problems

ABSTRACT

DMS 0307166- H Bercovici (Indiana Univ)

The proposer plans to study free harmonic analysis in the sense of determining regularity properties of free convolutions; free convolutions of measures
seem to exhibit greater regularity than their classical counterparts. He also plans to investigate limit distributions of free processes, particularly
those arising in the mutliplicative theory. The proposer also will look at
related problems in operator theory, particularly at the behavior of
eigenvalues of sums of selfadjoint elements of a von Neumann algebra, and the
relationship of these questions with Littlewood-Richardson coefficients.
Other problems in operator theory will include the classification of families
of isometries on a Hilbert space.

The research in this proposal is aimed first of all at increasing the
understanding of questions arising in current work in the fields of operator
algebras and operator theory. The proposer has in the past investigated connections between operators and control theory, and the results in his
proposed work may again have connections with more applied areas.
In particular, some of the proposed interpolation problems arose from
questions in control theory, and free probability theory does have
connections with physics. The proposer will involve graduate students in his
work, thus continuing to contribute to the training of a new generation of
mathematicians. He will also participate in the training of postdoctoral
associates, thus contributing to a successful VIGRE program at Indiana
University.